SGER: Mining the Deep Web for Economic Data

EIA-0204796
Varian, Hal
University of California - Berkeley

SGER- Mining the Deep Web for Economic Data

This Small Grant for Exploratory Research will support exploration of "the deep web;" that is, data which is held in web-accessible databases, but which is generally not available via the use of standard web-crawlers. Data held in web databases may be several hundred times larger than the web we routinely access, and which is held in html and other tagged text files. The domain to be explored is economic information, to see whether these new data can help in economic forecasting.